Computers in Mineral Industry Planning, Engineering and Management, Indo-U.S. Workshop, January 1991, Calcutta, India, Group Travel Award in U.S. and Indian Currencies

Description: This project supports participation of 15 U.S. scientists in a joint Indo-U.S. Workshop on computer in mineral industry planning, engineering and management planned for January 1991 in Calcutta, India. The Indian coordinator is Dr. D. K. Sinha, Director, Indian School of Mines, Dhanbad, India. The activities will include a three-day seminar, visits to mining operations and mining management/engineering offices in India, to be followed by a two-day round table discussions on emerging research needs. The seminar will include presentations on recent developments in mineral industry, and education and training of engineers and managers. In the round table, joint Indo-U.S. research projects will be outlined for future collaboration. Topics to be discussed will include: automated data acquisition in mineral exploration, statistical modeling for quality estimates of mineral resources and reserves; factors affecting mine planning, development and operation; economic and risk analysis aspects of mining; mineral processing; maintenance and scheduling; remote control, automation, robotics and artificial intelligence systems; and applications of national data bases for safety and health, productivity and regional and national planning. Scope: This workshop brings U.S. and Indian scientists and engineers to discuss an area of importance to both countries. The idea of the workshop was recommended by the Indo-U.S. subcommission on Science and Technology in its most recent meeting (November 1987). The project is likely to enhance future collaboration between academic and industrial organizations in the two countries and to allow for the exchange of information developed independently in India and the U.S.